Photoionization and Study of Multiply-Excited Atomic Systems

Theoretical and computational studies of the photoionization of highly excited (hollow) atoms are carried out using a combination of saddle point and complex rotation techniques. The numerical results provide the most accurate values for the energies and widths available for these complex atomic systems.